Next-Generation Research Program Assessment

This project will link the U.S. research assessment community to world discussions of the
problems and prospects of new ways of viewing the management of research. The
indicator systems that are currently in use for research programs around the world will
not yield much useful information in the end, because they are too closely tied to current
management information systems and therefore to input, process, and output measures.
The next generation of assessments must get a better handle on outcomes in order to meet
the demands of legislatures for broader public accountability. This project will bring
together those who are beginning to develop a new generation of measures and
approaches. The project will first work on identifying world resources in this area and
make that information available on a Web site. The centerpiece of the project is a three-day
retreat, envisioned for spring 2001, that will involve the key crafters of new
approaches to research assessment, from both the U.S. and other countries. Leading up to
the workshop, the project will re-establish network connections among researchers and
agency assessment staff in the United States, through a series of network meetings in
Washington. The main products will be a research agenda for the area; a U.S.-based
network, with international connections, bringing together academic researchers from
different fields with agency staff; and elements of training for a new generation of
assessment professionals.